INBOUNDS: The Integrated Network-Based Ohio University Network Detective Service

This document describes a proposed software system, called INBOUNDS (Integrated
Network-Based Ohio University Network Detective Service), that will address the
difficult research problem of security in the dynamic real-time Internet environment
populated by both legitimate users and hostile intruders.
Internet security is becoming more critical by the day. Successful attacks on banks,
schools, government agencies, and corporations that do business online are becoming
more and more common, and the frequency of these attacks and the amount of damage
done is rising rapidly. Commercially available firewalls and intrusion detection systems
are currently the only weapons with which to defend against the threat, but they are
obviously not capable of keeping up with the ever-changing attack strategies of hackers.
Thus, we propose INBOUNDS a real-time network based intrusion detection and
response system under development at Ohio University's Laboratory for Real-Time,
Secure Systems and Applications. INBOUNDS detects and responds to suspicious
behavior by using TCPTrace (a network traffic analysis tool) and DeSiDeRaTa (dynamic,
real-time resource management middleware). INBOUNDS is intended to function in a
heterogeneous environment with fault tolerance, very low overhead, and a high degree of
scalability. A prototype of INBOUNDS is currently being used for around-the-clock
intrusion detection and response at Ohio University and we propose to add functionality
that will enable INBOUNDS to deal with the following important types of attacks:
Large-scale, distributed denial-of-service attacks
Abnormal network protocol behavior including SYN and RESET attacks
Suspicious keywords in interactive sessions/email
Suspicious patterns of data, such as the fan-out patterns commonly seen with
email viruses
Communication over unusual network ports, which are common when attackers
target seldom used and insecure servers
Connections from unknown/unusual hosts
Abnormal data patterns for a particular time of day
Unusual data patterns on known ports, such as would be seen when at attacker
installs programs using the fingerd port as in the Morris Worm